Estimation of Arctic Precipitation from Water Vapor Fluxes

This proposal is part of a systematic study of the Arctic environment and its role in global change promoted by NSF's Arctic System Science Program. It is a two year project to quantitatively investigate aspects of the Arctic hydrologic cycle that are most relevant to the freshwater input to the Arctic Ocean. Existing rawinsonde data will provide the basis for computations of atmospheric water vapor convergence and of net P-E (Precipitation minus Evaporation) over the Arctic Ocean and the arctic drainage basins of northern land areas. The computations will use daily data to obtain estimates of monthly hydrologic quantities for a 30-year period, 1961-1991.